Design and Optimization of Imprinted Superabsorbent Polymers for Selective Pathogen Binding and Release: Integrating Materials Science, Fluid Dynamics, and Explainable AI

NON-TECHNICAL SUMMARY
Clean water, safe food, and rapid detection of harmful biological threats are essential to public health, economic stability, and national security. Bacteria and viruses can contaminate water supplies, food systems, and medical spaces, making reliable and durable detection and removal technologies critically important. Many existing methods rely on fragile biological components that are expensive and may fail outside controlled laboratories under real-world conditions, limiting their effectiveness.
This project develops a new class of synthetic materials designed to capture and detect harmful biological targets in a faster, more reliable, and cost-effective manner. These materials combine two key capabilities: they selectively recognize specific biological substances, similar to how a key fits into a lock, and they absorb and transport fluids to increase contact between the target and the material. By integrating these functions into a single platform, the materials are expected to improve the ability to identify and remove harmful substances in complex fluids such as water systems, food processing streams, and medical fluids.
The research will uncover how these materials interact with biological targets under both still and flowing conditions, leading to improved designs that perform effectively in practical settings. The results are expected to support advances in water purification, disease monitoring, food safety, and defense, contributing to national priorities in public health, safety, and biotechnology innovation.
The project also supports education and workforce development by training students in materials science, biology, biotechnology, and data-driven engineering. Students will gain hands-on experience across experimental and computational research, preparing them for careers in science and engineering. Outreach activities will introduce students and the public to modern scientific challenges and solutions, helping to strengthen the nation’s future workforce and innovation capacity.

TECHNICAL SUMMARY
This project investigates a new class of biomimetic composite materials, termed bio-imprinted superabsorbent polymers (BioISAPs), for selective capture, enrichment, and controlled release of pathogen-related biomarkers in complex fluids. BioISAPs integrate molecular imprinting, which creates target-specific binding sites, with superabsorbent polymer networks that enable fluid uptake, swelling, and transport of analytes within porous structures. The central hypothesis is that swelling-induced transport, combined with spatially distributed binding sites across internal and external surfaces, enhances target accessibility, residence time, and binding efficiency under both static and dynamic flow conditions.
The research pursues three objectives. The first objective examines BioISAP synthesis, structure, and swelling dynamics, establishing relationships between composition, morphology, and transport properties. The second objective quantifies biomarker adsorption, binding, retention, and release under static and flow conditions through controlled experiments and transport-reaction modeling. The third objective develops interpretable machine learning models that integrate experimental and computational datasets to predict and optimize performance metrics, including capture efficiency, selectivity, and release behavior.
The work integrates high-throughput experimentation, microfluidic characterization platforms, and computational fluid dynamics modeling to quantify coupled transport and reaction processes. Explainable machine learning methods are used to identify structure-property-behavior relationships and guide material optimization. The expected outcomes include a mechanistic understanding of polymer-biomarker interactions in dynamic fluids, validated predictive models for BioISAP design, and a general framework for data-driven optimization of multifunctional polymer systems applicable to biosensing, bioseparation, healthcare diagnostics, biodefense and security, pathogen remediation, food safety, and industrial sustainability.